Dynamics of Elementary Processes in Solutions of Biopolymers

The dynamics of DNA, the molecular basis of life, are being studied by Dr. Schurr He has an almost unique expertise in combining theory and experimentation using many different experimental tools. The experiments involve physical studies of DNA conformations that are of substantial interest and importance to others in the field. Several different physical techniques will be used in concert to define the parameters of the system. This combination represents a more thorough approach to the study of nucleic acid conformation and dynamics than is commonly encountered.